Petrologic and Stable Isotopic Investigation of the Role of Metasomatism During Regional Metamorphism in the Barrovian Type Area, Scotland

9405889 Ague The proposed research will continue to address the hypothesis that major metasomatism may control the mineralogic evolution of pelites. If pelite chemistry may be commonly altered as a result of syn-metamorphic fluid flow processes, then metamorphism plays a much larger role in determining the physicochemical evolution of the middle and lower crust than previously thought. The hypothesis will be tested by carrying out an integrative petrologic and stable isotope study in Barrovian type area of the Scottish Highlands. The aims of the proposed research are to (1) determine the nature and effects of mass transfer through regional mapping of vein sets and petrologic mass balance analysis, (2) constrain the timing of mass transfer relative to metamorphic and deformational events using petrographic observations and backscattered electron imaging, and (3) determine the fluxes of metasomatic fluids, time scales of fluid flow, and fluid flow paths using both petrologic and stable isotope methods.